CyberSecurity Capacity Building at North Dakota

The Information Assurance and Security (IAS) Education project in the Department of Computer Science and the Department of Management, Marketing, and Finance at North Dakota State University (NDSU) helps NDSU achieve Academic Excellence in Information Assurance and Security Education. It is built upon close collaborations with consultants and partnerships from academia, industry and government. Specific tasks developed under this project include:
1. Training our faculty through the Center of Academic Excellence in Information
Assurance Education at Iowa State University, in which the faculty develop and deliver information assurance security modules that can be readily included in core courses in IAS;
2. Developing new courses and revising existing ones by integrating IAS modules into selected courses. The federal training documents provided by the Committee on
National Security Systems (CNSS) will be consulted.
3. Tailoring student capstone and course projects to IAS;
4. Establishing partnerships between disciplines and departments, among the U.S. academic institutions, industry and government, for developing specific projects and involving their personnel in teaching;
5. Developing the career interest of junior high school girls in IAS by organizing a workshop session.